A Redshift Measurement System for the Large Millimeter Telescope

AST-0096854
Erickson, Neal

A fundamentally new kind of millimeter-wave receiver will be designed, built, tested and integrated onto the NRAO Greenbank telescope (GBT) of NSF and onto the Large Millimeter Telescope (LMT) being built by the Defense Advanced Research Projects Agency (DARPA). The instrument will measure radiation from astronomical sources across the entire 75 to 110 GHz window of clear atmospheric transmission with < 50 MHz of frequency resolution. The unique technologies are 1. The development of monolithic integrated ultra-low noise amplifiers and wideband mixers, 2. Intermediate frequency amplifiers in the front end, 3. A wideband spectrometer backend.
***